Pathways In Preparation; Enhancing Science, Technology, Engineering, and Mathematics

Chief Dull Knife College, in collaboration with the University of Montana, Montana State University and Northern Cheyenne Reservation high schools, will implement a five-year TCUP project to develop a seamless pathway for students between reservation high schools, Chief Dull Knife College and the two partner universities. The project will enable team members from these institutions to work together and to establish long-term positive relationships and networks.

Project team members, including new faculty positions established through program funding, will work together to develop and revise high school and college math and science curricula; provide teacher training; develop capstone research and mentoring experiences; and implement a 2-week STEM workshop for high school students.